West Coast Algebraic Topology Summer School

Abstract

Award: DMS-1106865
Principal Investigator: Dev Sinha, Ralph Cohen

The principal organizers will be program organizers for a
one-week summer school program in algebraic topology, to be
hosted at the University of Oregon. This summer school will bring
thirty graduate students and early-career mathematicians together
for an introduction to an area in topology which is ripe for
investigation, and whose techniques will inform and inspire
developments throughout topology. This summer school will use a
unique blend of pedagogical tools, combining elements which have
been successful in other settings. Younger researchers will be
involved with both organizing and giving talks. Attendees will be
encouraged to work problems, fill in background, and do reading
together in addition to attending lectures.

The West Coast Topology Summer School continues a series that
began in summer 2010 and will strengthen the knowledge base of
topologists and others who use topology and build a cohort of
junior researchers familiar with recent developments in the
subject. The program organizers of the Summer School are the
principal investigators, together with Alejandro Adem of the
University of British Columbia and the Pacific Institute of
Mathematical Sciences (PIMS). PIMS is a partner in the project,
which will bring together US--based graduate students, largely
from the western United States, and Canadian graduate students
sponsored by PIMS. In its role as a basic study of shape,
topology has significant ramifications in other areas of
mathematics, from basic counting problems (combinatorics) to
solutions of equations (algebra) to applications and extensions
of the calculus (analysis). More broadly, knowledge of topology
is essential for example in studying the structure of the early
universe, in designing a robot arm with a minimal number of
controllers, and in searching large data sets for meaningful
groupings as successfully done recently for study of breast
cancer. This summer school will strengthen the ties between basic
areas of theoretical mathematics. Mathematicians from
underrepresented backgrounds will be vigorously recruited.
Graduate students and post-docs will gain hands-on experience
with some of the most important developments of contemporary
mathematics, preparing them to be future leaders of the field.
Participants will enlarge their professional networks, which is
especially critical given the geographical distances faced by
mathematicians in the western half of North America. Organizers
and participants will also have the opportunity to reflect upon
the array of pedagogical tools employed, and might employ some
themselves in training graduate students and undergraduates or
reaching out to fellow scientists and the general public.